Support Service for Small Business Innovation Research Conference; April 29 through May 1, 1996; Dallas, TX

9613222 Baron Funding provided to support the Small Business Innovation Research and Small Business Technology Transfer National Conference; April 29 to May 1, 1996 in Dallas, TX.